Restructuring an Introductory Geology Laboratory Around Themes of Earth Systems

The Geology Department is developing ane approach in which laboratory and field modules, rather than classroom lectures, serve as the focal point for teaching the scientific method. Modules sufficiently broad-based to be relevant for students in three introductory lecture courses in geology are being introduced. The independent laboratory course consists of six modules requiring 1 to 4 laboratory session. Each module has a theme illustrating the complex relationships which exist between seemingly disparate subjects. Students explore these themes through integrated analyses of a variety of materials: rocks, minerals, maps, satellite images, data sets, etc. The laboratory activities are interwoven with direct field observations.